RUI: Modeling the Earthquake Dynamics of Complex Thrust Fault Systems, with Application to the Western Transverse Ranges, California

The size of an earthquake can be impacted by the number of fault segments in a system. If fault segments are close together, a rupture on one segment can hop to another and keep going, leading to a much larger quake than the individual fault segment could produce. This project will test models to determine when an earthquake rupture is likely to continue to a nearby segment. Models will help interpret networks of existing fault segments in the Los Angeles region and identify the likelihood of multi-fault ruptures. In addition, the study will provide estimates of expected ground shaking in the region and increase understanding of a significant hazard to population centers in Los Angeles and Ventura counties.

The size and path of an earthquake rupture through a fault system is affected by many factors, but fault geometry has consistently proven – through empirical, observational, and computational studies alike – to be one of the strongest first-order controls on rupture behavior and length. Understanding the physics of how fault geometry controls rupture behavior and developing a set of physics-based rules for which geometrical complexities are more or less likely to stop a rupture, is therefore an important part of earthquake hazard assessment. This project will use 3D finite-element simulations of the rupture process to explore geometrical controls on reverse-faulting earthquakes. The modeling will be used to produce a site-specific modeling study on a complex network of thrust faults in the Western Transverse Ranges, southern California.